Biochemistry of Luminescence

9630861 Shimomura Technical abstract Bioluminescence occurs in a wide variety of organisms, involving diverse types of compounds and reaction mechanisms in the chemical process of light emission. This research is focused on the biochemical understanding of the bioluminescence of fungi, which has been challenged by several groups in the past 40 years without success. The bioluminescence of fungi is unique and distinctly differs from all other bioluminescent systems presently known. Their glow is continuous and nearly constant for days, and the light-emitting reaction is catalyzed by surfactants, not by conventional luciferases. In the chemical study of bioluminescence, the identification and characterization of the key components involved are most important. Thus, the central theme of this project is the structure determination of various fungal luciferins and their precursors. The luciferin of the luminous mushroom Panellus stipticus was found to have a complicated structure consisting of three molecules of the precursor (ketoaldehydes PS- A and PS-B) and two molecules of methylamine; the molecule contains an unusual 9-membered ring. In order to determine the complete structure of the P. stipticus luciferin, a luciferin sample that contains C-13 atoms at the key positions of the molecule will be prepared, and the sample will be analyzed by a NMR technique newly developed at Dr. Kishi's lab at Harvard. From the luminous fungus Mycena citricolor, more than 10 kinds of luciferin precursor were recently isolated in pure states; their structures are now being elucidated. These precursors readily form luciferins when reacted with decylamine; the structures of the M. citricolor luciferins thus obtained will be determined. It seems apparent that the luciferin of all luminous fungi are derived from a precursor of aldehydic type, such as PS-A and PS-B, and a primary amine, and that all of them contain an identical light-emitting chromophore. Such a chromophore will be identified from t he structures of more than two different types of fungal luciferins. In the luminescence reaction of fungi, a luciferin is oxidized by molecular oxygen in the presence of superoxide anions and a cationic surfactant, in which the emitted photons play no apparent role, but by which the reaction can eliminate harmful superoxide anions in the tissue; the proposed study might uncover other important roles for the reaction. The involvement of a surfactant that mimics a luciferase suggests that the study may contribute to the understanding of enzymatic action. The high sensitivity of fungal luciferin to superoxide anions suggests its possible use as a superoxide probe. Non-technical abstract In the chemical study of bioluminescence, it is most important to identify and characterize the key substances involved in the light emitting reaction. Luciferin is a type of substance that exits in luminous organisms and emits light when it is oxidized. The central theme of this research is to find out the structures of various fungal luciferins and their precursors. The luciferin of one type of luminous mushroom, named Panellus stipticus, was found to be a complicated compound that includes and unusual ring of 9 carbon atoms. The PI plans to determine the complete structure of this luciferin by preparing a luciferin sample that contains a heavier-than-average carbon atom (13C) at the key positions of the molecule, and then analyzing this sample by a process known as nuclear magnetic resonance (NMR) spectroscopy. The luminous Costa Rican tobacco fungus (Mycena citricolor) contains more that 10 kinds of luciferin precursor which have been recently isolated and purified; we are now trying to determine their chemical structures. These precursor molecules are readily converted to luciferins when treated with a substance called decylamine; we plan to investigate the chemical structures of these luciferins. Now it seems apparent that the luciferins of all luminous fungi are derived from similar mat erials, and that all of them contain an identical light-emitting structure called a chromophore. We plan to identify such a chromophore based on the chemical structures of more than two different types of fungal luciferins In luminous fungi, light is emitted when a luciferin is oxidized by molecular oxygen, in the presence of certain negative ions (called superoxide anions) and a detergent; in this reaction, the emitted photons play no apparent role, but the reaction can eliminate the superoxide anions, which are harmful, from the tissue. The involvement of the detergent that mimics an enzyme suggests that the study described here may also contribute to the understanding of enzymatic action. The high sensitivity of fungal luciferin to superoxide anions also suggests the possibility of using this material as a means of detecting the presence of harmful superoxide anions in biological systems.